Conformal Invariance and Restriction in Multiply Connected Domains and Riemann Surfaces

The P.I.'s research programme is to study conformally
invariant measures first in multiply connected domains and
then on Riemann surfaces. In particular: Identify diffusions
on an appropriate moduli space that give rise to conformally
invariant measures on curves satisfying the restriction
property; Measuring the restriction defect for other
diffusions, and calculating or characterize intersection
probabilities as functions of the moduli; Link the measure
and its change under perturbations of the conformal structure
to highest weight representations; Study conformally
invariant quantities for domino tilings and the Gaussian free
field in multiply connected domains.

Self-avoiding planar curves arise in many natural contexts.
For example, if a very shallow plate is filled with water and
oil, we can consider the curve (or curves) separating the two
liquids. Another example are coastlines, the borders of
countries on maps, or rivers seen from an airplane.
Typically, these curves are very irregular. But what exactly
is ``typical,'' and how can the irregularity be quantified?
Since all coastlines are different, it does not make sense to
look for one self-avoiding curve as the mathematical model of
a coastline. On the other hand, it does make sense to look
for a probability distribution on the set of all
self-avoiding curves ( the ``possible'' coastlines) so that
if we sample from the set of these curves according to this
distribution, then the statistics are in agreement with
statistics of real coastlines. The P.I. proposes to study
these probability distributions in the case when the geometry
is complicated by holes (think of pebbles in the shallow
plate with water and oil) or the curves are situated on a
curved surface such as a sphere (the globe), a donut, or a
pretzel.